Collaborative Research: Development of self-biased solar microbial electrolysis cells

1033505
He

Intellectual Merit

The objective of the proposal is to develop a solar-driven microbial electrolysis cell (solar MEC) that consists of a semiconductor nanowire-arrayed photocathode and a bacteria-colonizing anode to convert dissolved organic matter to hydrogen gas. The dissolved organic matter could be from waste streams or renewable bio-based resources. Microbial electrohydrogenesis may have several advantages over bacterial fermentation for hydrogen production, such as higher hydrogen yield, higher efficiency, and substrate diversity. However, the microbial electrohydrogenesis process in conventional MEC devices requires additional energy input in terms of an external bias, typically in a range of 0.2-1.0 V, to overcome the endothermic barrier for hydrogen generation, which adds operation cost and limits the device efficiency. The solar-driven MEC design adopts a semiconductor nanowire-arrayed photocathode to assist electron transfer from a bacteria-colonizing anode and provide photovoltage for hydrogen generation. Specifically, upon illumination, the photogenerated electrons at the semiconductor conduction band reduce protons to hydrogen, while the photogenerated holes at valence band recombine with the electrons from electrogenic bacteria cells at the anode. The semiconductor nanowire-arrayed photocathode structure offers large surface area, strong light absorption and short electron diffusion length, and is designed to enhance the light absorption and proton reduction at the cathode. Fundamental issues, such as the bioanode and photocathode materials and structure, as well as electron transfer at the bacteria/anode interface, will be systematically studied.

The research will suggest approaches to optimize device configuration with the ultimate goal of demonstrating an efficient and self-sustained solar-MEC. The new device concept developed in this proposal can be applied to other bio-inorganic hybrid devices for energy conversion applications, such as microbial fuel cells.

Broader Impacts

The proposed education plan will integrate multidisciplinary research and educational activities at University of California Santa Cruz (UCSC) and University of Wisconsin at Milwaukee (UWM). New lecture material and experiments for laboratory courses will be developed that will make use of the microbial electrolysis cell (MEC) research techniques. For example, a new MEC experiment will be developed and used in an undergraduate physical chemistry laboratory class at UCSC, and course materials based on microbial fuel cells will be incorporated into an undergraduate environmental engineering course at UWM.

Research experiences will be provided to undergraduate students from under-represented groups, recruited through NSF-sponsored Summer Undergraduate Research Fellowship (SURF) and NIH-sponsored ACCESS programs respectively. The SURF program targets college/university students, while the ACCESS program targets students at the community college level in the Santa Cruz and San Jose regions. Research experiences for high school students, coordinated through existing programs at UCSC, will be provided for students recruited through local high schools. Educational outreach activities focus on development of a website for microbial fuel cells, with content designed for the general public and high school audiences that includes graphics, cartoons, and videos.